Atomic Coherence Effects in Quantum Optics: From High- Precision Spectroscopy to Lasing Without Inversion

9732445
Scully
This work consists of a set of theoretical and experimental investigations in the application of atomic coherence to quantum optics. Three different areas will be explored, precision spectroscopy based on phase coherent media, an extension of lasing without inversion into the frequency-upconversion regime, and new studies of enhanced index of refraction.